Presidential Young Investigator Award: Investigations in Theoretical Elementary Particle Physics and Astrophysics

Dr. Lawrence J. Hall is a young theorist doing research in elementary particle physics. He is mainly concerned with the construction of field theory models which will improve our understanding of elementary particles and their interactions. His special field of interest is in rare processes, i.e., proton decay, rare K and mu decays and neutrino masses. He is also interested in astrophysical problems, such as the solar neutrino and missing mass problems. Dr. L. Hall is an outstanding young theoretical elementary particle physicist. He has been honored with a Presidential Young Investigator award, so that he may pursue his research in elementary particle physics and in astrophysics.